A Cooperative, Spatial, and Evolutionary Medical Database System

9224559 Chu SDB: A Cooperative, Spatial, and Evolutionary Biomedical Database System This is the first year funding of a three-year continuing award. The objective of this research is to develop a distributed knowledge-based multimedia database system for biomedical applications with cooperative query answering capabilities. The system will be able to access data in image databases by content (features, objects, etc.). In particular, the proposed data model captures spatial and evolutionary semantics and thus greatly enhances high-level query capabilities. The image objects and their features are obtained from segmentation software and are stored in the database. Using rules derived from domain knowledge, approximate and conceptual queries may be answered. Additional information relevant to a query cay be provided by associating different hierarchies of subjects. Type abstraction hierarchies (TAHs) generalize a query's scope while the relaxation control, based on user profiles and query context, trims the TAHs and keeps the generalizations manageable and appropriate. An explanation system tracks the relaxation path and provides a measure of the nearness of the approximate answer to the exact one. These concepts are validated in a testbed linked with radiology image databases. The joint research between the UCLA Computer Science Department and the School of Medicine assures that the prototype systems are of direct interest to radiology research and practice. The results of this research are extensible to other multimedia database applications. ***